Sterol Control of Phospholipid Biosynthetic Reactions

Sterol Control of Phospholipid Biosynthetic Reactions: Dr. Bloch, a senior scientist and Nobel laureate, will review, analyze and coordinate data from his and other laboratories bearing on sterol functional relationships to phospholipid biosynthesis and effects on eukaryotic membranes. Dr. Bloch with his profound knowledge of sterol biochemistry, his wide experience, and large amount of available data is in a position to draw conclusions or suggest studies that may permit us to have greater control of the regulation of membrane phenomena.